A Group Proposal to Improve the Existing Research Infrastructure at NYU Robotics Laboratory with Applications to Robotics, Manufacturing, Visualization and Graphics

This equipment award, for robotics and vision equipment, supports research in rapid prototyping, visualization, automated manufacturing, and dexterous manipulation. The visualization work aims to create an electronic environment for the building of objects to be manufactured. Rapid prototyping occurs when the electronic version of the object is translated into codes and fixturing sequences that enable the object to be manufactured. When this process is fully automated and optimized, then the goal of automated manufacturing has been met. The work on dexterous manipulation is tied into the manufacturing process because the factory of the future will need complex robots that are able to pick up and handle a variety of objects. This research project is one of the few projects in the United States that addresses the full range of issues that need to be addressed in automated manufacturing. The equipment will support basic research on vision (robots need to see), manipulation (robots need to grasp objects), machine tooling and planning from electronic media (allowing the rapid development of products), and factory task optimization (allowing the inexpensive, high quality, mass production of products).